Topics in Game Theory

This is an important project because its results have a wide range of applications in economics. The project consists of work on the properties that imply stability in non-cooperative games, repeated games with bounded complexity and stable equilibria of repeated games. The research on stability addresses a major difficulty associated with the application of game theory to economics, i.e., multiple solutions for non-cooperative games. Game theory does not provide sharp conclusions or testable predictions because there are many possible outcomes intrinsic in a game. Past work by the investigators has dramatically changed this area of research by demonstrating that the concept of stability can be used to distinguish specific sensible outcomes to economic games with an infinite number of possibilities. But multiple solutions reappear if investigators can use different definitions of stability based only on their judgement about what is or is not intuitively plausible. The contribution of this project results from establishing the first convincing axiomatic foundation for stability. Stability will not be defined but derived from a minimal list of properties in this way limiting the number of acceptable definitions of stability. Stable equilibria are calculated for some of the more important economic problems such as the chainstore paradox and the prisoners' dilemma. The classical theory of repeated games assumes full rationality and does not put any bounds on the complexity that a strategy can have. But there are strategies in the repeated games that could not be calculated using the most advanced computers available. This project develops a more reasonable theory of repeated games in which there is some upper bound on the complexity of strategies. This one modification of repeated games theory is shown to explain apparent anomalies in observed repeated games. Finally, these two lines of research are joined in an effort to prove that long-term interaction described by stable repeated games must inevitably lead to efficient cooperative outcomes. The investigators have made numerous fundamental contributions to our understanding of game theory. They are capable of successfully pursuing this exciting and very ambitious research agenda.